Mathematical Sciences: REU: Computer Algebra

A Research Experiences for Undergraduates site will be established through this award to support six undergraduate researchers engaged in mathematical research in the area of computer algebra. The focus of the work will be on the description of surface intersections and the relationship of Grobner bases to the development of effective algorithms to solve algebraic and geometric problems. Symbolic computation will play a major role in the advancement of this research. The location of the project, the Institute for Computational Sciences and Informatics is ideally suited for this undertaking. Students will be encouraged to report on their findings at regional meetings of the professional societies.